Study Of Low Energy Nuclear Reactions In Late Stellar Evolution

***
9803757
Wiescher
Main goal of this proposal is the experimental study of proton and alpha induced reactions important for the understanding of nucleosynthesis in hydrogen and helium shell burning during the late stages of stellar evolution. The proposed measurements are necessary for a better understanding of nucleosynthesis in intermediate mass asymptotic giant branch (AGB) stars. AGB stars can form planetary nebula by expulsion of the outer envelope and contribute therefore strongly to the abundances observed in interstellar and meteoritic material. The proposed experiments will be performed at the newly installed KN (and JN) Van de Graaff accelerator facility at the University of Notre Dame using primarily low energy proton and alpha beams. For some of the proposed experiments inverse kinematic techniques will be used. The energy range available corresponds to the Gamow range of burning in late stellar evolution.
***